SBIR Phase II: Enhancing EVAR for AAA with Cygnum(TM) Aneurysm Sac Management Device

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is the development of a new treatment option for abdominal aortic aneurysms. By offering a platform that could also be applied to related vascular conditions, this innovation has the potential for commercial impact.

This Small Business Innovation Research (SBIR) Phase II project will advance the design and testing of a novel device that lines the aneurysm sac during endovascular repair. The research builds on prior feasibility results and will refine the device for consistent use and drive adoption. Key objectives include optimizing the delivery system, verifying long-term biocompatibility, and demonstrating reliable performance in laboratory and preclinical models. The technical approach combines a compressible implant with precise endovascular deployment to achieve complete aneurysm sealing and reduce the risk of complications. Anticipated results include strong preclinical evidence of safety and effectiveness, providing the foundation for future clinical evaluation. The work represents an important step toward improving outcomes for patients with abdominal aortic aneurysms while advancing knowledge in endovascular device design.